Postdoc: An Interconnection Network Architecture for Petaflops Computing

0103675
Katsinis, Constantine
Drexel University

CISE Postdoctoral Associates in Experimental Computer Science: An Interconnection Network Architecture for Petaflops Computing

Research in high-performance computer systems is proposed that will expand the one-dimensional prototype Simultaneous Optical Multiprocessor Exchange Bus (SOME-Bus) interconnection network into a two-dimensional architecture. Recent work on the SOME-Bus over the past few years has raised several important issues (e.g., network interface design, network management, programming, applications and performance) that remain open and challenging as they relate to the potential two-dimensional bus. The experimental and theoretical work of the postdoctoral research associate will contribute to multidisciplinary research in computer architecture, performance analysis, optoelectronic devices, and VLSI design. The associate's research training will be enhanced by interactions with other nearby academic and industry groups working on similar high-performance architectures, and limited contributions to graduate student projects and courses in computer architecture.